Utilization of Technology in Non-traditional Calculus

The calculus curriculum is being revised to place more emphasis on learning the concepts, solving realistic problems, and improving estimation of skills. Materials are being developed to utilize the HP-28S hand-held calculator.